A Cooperative Optoelectronics Laboratory Course Between University and Industry

9451213 Leger A unique senior photonics laboratory is developed that combines the resources and talents of the University of Minnesota with those of local industry. Formal laboratory education takes place both at the university and at selected industrial laboratories, giving the students first-hand experience with sophisticated equipment and real-world problems. In addition, the university laboratories are designed to take advantage of industrial expertise and materials, and to give students exposure in areas important to industry. The laboratory includes a state-of-the-art coherent imaging and measurement system, and a fundamental experimental testbed for a series of experiments in fiber and integrated optics.